Mathematical Sciences: Non-Linear Problems in Geometry and Physics

9403918 Spruck The scope of research involves several topics in the geometry and analysis of classes of partial differential equations arising in geometry and physics. Among these are included cosmological string solutions of the Einstein-Yang- Mills-Higgs equations and topics in the theory of vortices. This research involves potential applications to gauge field theory in mathematical physics and soliton theory. ***